Acquisition of High-Resolution Transmission Electron Microscope

This high-resolution transmission electron microscope offers 0.18 nanometer point resolution in a side-entry stage configuration and also accommodates a large solid angle x-ray detector. It will be housed in the new Materials Science Center of the College of Engineering at the University of Wisconsin, and will create new opportunities and enhance the activities in several major research areas including fundamental studies of rapid solidification, high-resolution imaging of geological materials, low-temperature and high-temperature superconducting materials development, metallizations on gallium-arsenide, supported metal catalysts, ultrafine ceramic particles and membranes, crystallization of structural glass ceramics, and radiation damage in materials for fusion systems and plasma-source ion implantation processing.